An Atmosphere/Climate Experiment Using Internationally-Derived Data from an Internet-Structured Model

Marotz In response to an Announcement of Opportunity for the Global Learning and Observations to Benefit the Environment Program (GLOBE) this project is designed to meet the GLOBE goals and objectives of linking scientists and schoolchildren in a global information network with the ultimate goal of better understanding the Earth's environment and changes that take place within it. The project intends to conduct a series of progressively more complex experiments on global warming using meteorological, trace gas, and aerosol data collected by students at five schools arrayed across five different climate zones. The Principal Investigators, Mentor Teachers and Students are linked in a structure that mimics the INTERNET in its design: the backbone of the net is based on climatic characteristics, and the individual schools represent nodes. Results, products, lessons, etc., will be disseminated along the INTERNET and on CD-ROM as well as on other media. International cooperation is built into the structure of the project. Training workshops will be offered during the summer at the five school locations. Program evaluation will involve students as a principal source.